Summer Undergraduate Research Experience

The REU Site in the Physics Department of the University of Michigan will be continued. The Department recruits students nationally, and incorporates the accepted students into the various research programs of the Department. Several short courses will be offered over the summer, as well as visits to nearby laboratories.